Materials Synthesis and Processing: Modeling and Control ofMacro-Phenomena and Micro-Structure in Steel Rolling

A combined numerical and experimental research program will be developed to study the hot rolling process with emphasis on the understanding of the thermomechanical behavior and its associated microstructure development. In the numerical approach, macro-heat transfer and mechanical models will be integrated into a metallurgical- or micro-model to simulate the process considered. With this integrated model, the relationship between the process parameters and microstructure of the workpiece can be established. In the experimental approach, the thermomechanical characteristics of the rolling process will be simulated by a hot deformation tester. The temperature and time dependent changes of microstructure during and after deformation will be examined. The testing data will be utilized to determine the flow behavior for macro-modeling and the material parameters needed in the micro- modeling. The kinetic theories associated with statistical techniques will be adopted to form the governing equations for the researched micro-models. As a result, the needed boundary conditions for solving these equations will be provided by the experimental data. The experimental study will also be used to verify the modeling predictions to further refine the micro- and macro-models developed. Then the strategy to have better control of the microstructure and mechanical properties can be developed. Further understanding of the thermomechanical and metallurgical phenomena should certainly make for operating the process more effectively cost-wise. The research may also serve as a catalyst to the development of a new rolling technology for new applications. The study may allow the production of steel shapes of improved quality at higher speeds.